Jaime Escalante Math Program (JEMP)

This two year project will implement the Jaime Escalante Math Project at Hiram Johnson High School and its West Campus and Feeder Middle Schools in the Sacramento City Unified School District. During year-one two HJHS teachers will be trained in the methodology and strategies used by Mr. Escalante. This will be done in the academic year during a series of Saturday workshops taught by Mr. Escalante. Then, in the summer these project associates and Mr. Escalante will team teach three classes of 30 students each. During the second year of the project six more teachers will be trained in JEMP and then practice these new methods and strategies during the second summer in classroom settings. Also included are student tutorial sessions Monday through Thursday during the second academic year and a series of one-day presentations on JEMP to elementary school teachers in the SCUSD which are Feeders for the middle schools. Cost sharing equals 177% of the NSF award.